Keystone Policy Dialogue: A Scientist to Scientist AdvocacyColloquium on National Research Goals

The Keystone Center proposes to bring together a group of influential and productive scientists and others actively involved in science funding decisions to engage in a scientist-to scientist advocacy colloquim on national research goals. The dialogue will consist of a week-long series of meetings in Keystone, Colorado, involving between 30 and 40 participants from scientific organizations, the academic community, government agencies, and the science and technology industry. Through structured, presentations, champions of various points of view from various disciplines (e.g., high energy physics, molecular biology, astrophysics, chemistry, and super conductivity) will be give the opportunity to urge colleagues to understand and share their enthusiasm about programs being pursued by people with visions other than their own.